Faculty Awards for Women: Catalytic Hydrogenitrogenation of Petroleum Derivatives

The research program will focus on investigating the catalytic phenomena involved in hydrodenitrogenation reactions over sulfided and unsulfided Ni-Mo catalysts. The catalysts to be used in this study will be synthesized by three different techniques, namely, homogeneous sulfide precipitation, impregnated thiosalt decomposition and intercalation of nickel and molybdenum cations in clay matrices. Catalyst characterization will be performed using various techniques including BET surface area and pore size distribution analysis, X-ray diffraction, scanning and transmission electron microscopy, energy dispersive X-ray analysis, laser Raman Spectroscopy and Raman microprobe and X-ray photoelectron spectroscopy. Thermal analysis techniques will also be used through temperature-programmed reduction, desorption and sulfidation studies. In addition to ambient characterization of the catalysts, in-situ characterization techniques will also be adopted using a laser Raman spectrometer and a specially designed in-situ Raman cell. The changes that take place in the catalyst during oxidation, reduction, sulfidation, reaction and deactivation processes will be examined in-situ. These studies will be used to investigate the nature of the active form of the catalyst and the catalyst support interactions. In addition to examining the reaction network, the effect of reaction parameters such as hydrogen partial pressure, reaction temperature and pressure and the effect of substituents will also be investigated. Finally, isotopic labelling techniques will be combined with kinetic studies and in-situ laser Raman spectroscopy studies to gain insight into the catalytic phenomena involved in hydrodenitrogenation reactions.